Kinetics and Energies of Mineralogical Processes

The principal investigator will study three important questions in mineral physics: Does crystal growth rate change abruptly at a critical size as elastic strain energy increases? What factors most affect grain boundary diffusion rates in monomineralic aggregates? What energies are associated with dislocations in minerals, and to what extent do these affect mineral transformations? All of these studies are important if we are to have fundamental understanding of mineral behavior.